CISE Minority Institutions Infrastructure: Improving Research and Undergraduate Education in Computer Science

9522157 Alo This award provides for infrastructure designed to substantially increase the numbers of minority students going into and completing degrees in the computing disciplines at the University of Houston-Downtown. The project has three primary components: Students, Academic Program, and Research with strong recruitment, mentoring, curriculum enhancement, and research development activities as parts of the project. Collaboration with Rice University has been established and will be an important part of the overall effort. Community college linkages will be initiated, a Saturday Academy for high school students has been established, research experiences for undergraduates will be expanded, and the faculty research environment will be enhanced. It is anticipated that this project has the potential to become a model for development of programs for minority success at other similar urban universities. ***